Energy Functions for Spectroscopy and Dynamics Studies of Proteins

9601006 Krimm A new and systematic method has been developed for optimizing potential energy functions for molecular mechanics (MM) and molecular dynamics (MD) studies of macromolecules. By analytically transforming scaled ab initio force fields of conformers of model systems, an MM function is obtained that reproduces the structures, energies, and vibrational frequencies of the ab initio calculation. This is called a spectroscopically determined force field (SDFF), and the approach has been successfully implemented for saturated hydrocarbons. This proposal will develop an SDFF for the polypeptide chain of proteins, based on analogous ab initio calculations of conformers of dipeptides. In this process, an explicit hydrogen-bond component of the energy function will be developed. This SDFF will be applied to MM, MD, and spectroscopic analyses of proteins. *** The availability of more accurate energy functions for proteins will have a major impact on areas from structural molecular biology to biotechnology. The significance of this development is that one will be able to predict physical properties of proteins with much greater confidence in their reliability than is possible at present. This means that knowledge will be advanced of how proteins interact with each other and with other molecules, which is the basis for understanding a wide range of biological processes. %%%